STTR Phase I: Synthesis and Consolidation of Ultrafine Titanium Carbide

This Small Business Technology Transfer (STTR) Phase I project will develop a low cost process to synthesize ultrafine titanium carbide (TiC) powder from its chloride precursor and to consolidate this powder, along with metal powders, to produce fine grained composites. Major impediments to the wide spread use of TiC-based composite materials for high temperature structural and cutting tool applications are their low fracture toughness and high cost of production. Increase in toughness and reduction in cost may be achieved simultaneously by producing composites using nanocrystalline carbide powder synthesized by a low cost, ambient temperature mechanochemical process. Phase I will focus on optimizing the parameters which control (i) the reaction rate during the mechanochemical process, (ii) the particle size of metal matrix powders during milling with hard TiC to produce composite powder, and (iii) grain growth during consolidation. The research objective is production of cost-effective composites with a nanoscale grain size.

This process technology has potential as a commercial technique for synthesis of ultrafine metal carbide powders used in products like metal matrix composites and titanium carbide cutting tools.